Seasonal Cycle Transitions and the NCAR Community Climate Model, Version 2

The objective of this grant is to explore midlatitude seasonal cycle and subseasonal interactions, especially during spring and fall. Hypothesis: seasonal transitions are analogous to laboratory flow regime transitions, i.e., they involve instabilities and intermittencies, and the exhibit hysteresis. The methodology involves using EOF and harmonic analysis The PI will compare the seasonal cycle in ECMWF global analyses for the 1980's with decade-long simulations computed by NCAR Community Climate Model version 2 (CCM2) and by a quasigeostrophic model. One CCM2 simulation will be forced by interannually varying sea surface temperatures. The PI will track the time-varying position of the midlatitude jet during spring and fall to document seasonal transition time scales, intermittencies, and winter to summer versus summer to winter hysteresis. The expected significance of this research is validation of the seasonal cycle in the CCM2. If the CCM2 does not realistically model the "climate change" that occurs during the seasonal cycle, its reliability in simulating climate change in other contexts will be open to question. Also it is expected that we will gain increased understanding of seasonal transition processes.